Mathematical Sciences: Pseudo-Boolean Functions from a Combinatorial Perspective

This research will study the geometry and combinatorics of the d-cube, particularly as these relate to optimization problems. Previous work in this area has been motivated by linear programming problems. The framework used in the present work will be pseudo-Boolean functions. A list of specific problems that can be stated in terms of optimizing pseudo-Boolean functions will be compiled. Similarities in the combinatorial properties of the pseudo-Boolean functions will be explored.